SBIR Phase I: Novel Desulfurization Adsorbents

This Small Business Innovation Research (SBIR) Phase I project will design and develop novel metalorganic framework (MOF) adsorbents that selectively remove hydrogen sulfide (H2S) from hydrogen reformate gas. It addresses the critical need for an effective sulfur removal approach for a fuel processing system using JP8 and diesel logistical fuels. The goal is to reduce sulfur content to <0.1 ppmw in reformate and provide pure hydrogen for the proton exchange membrane fuel cell (PEMFC). The MOF adsorbents will offer attractive advantages of selectivity, capacity, and regenerability for sulfur removal compared to existing technologies.

Improved desulfurization for compact fuel processors will facilitate the production of portable power sources (10 - 1000 W) and auxiliary power units (50 - 200 kW) for ground vehicles, tractor-trailers, boats, RV's, etc. It is likely that the technology will also be scalable down to smaller 1 - 10 W power units that have immense market potential for portable electronic devices using liquid fuels.